Collaborative Research: The Polaris Project II: Amplifying the Impact

The Polaris Project II seeks to amplify the impact of the Polaris I project (an International Poalr yera project now in its third and final year) through its extension, expansion, and enhancement.

Polaris II seeks to 1) train the next generation of arctic researchers, 2) advance scientific understanding of the Arctic, and 3) expand public awareness of the feedbacks between the Arctic and the global climate system. These objectives will be accomplished through a multi-faceted effort that includes a summer field course/research experience in the Siberian Arctic, a series of on-campus arctic-focused courses, and a wide range of outreach activities.
While undergraduate students remain the primary focus of Polaris II, participation in the annual field course will be expanded to include a K-12 teacher, graduate student, postdoctoral researcher, and visiting faculty member each year. Outreach activities will target K-12 students and teachers, undergraduate students and faculty, and a diverse public audience.